Probing Molecular Interactions During RecA-Mediated DNA Strand Exchange Using Nucleotide Analogs

This starter grant award of the Chemistry Division to Rice University supports the research of Professor Scott F. Singleton. The research focuses on a molecular understanding of the strand exchange process mediated by the RecA protein of Escherichia coli, a nucleic acid recombinase. The work formulates specific structural and mechanistic models for the strand exchange process based on chemical kinetic investigations into, for example, the influence of nucleotide modifications on the kinetic parameters. Transient and steady-state kinetic experiments are performed using DNA strands which contain nucleotide analogs that introduce conservative changes in the stabilities and conformations of the substrate, product, and intermediate species. The results allow characterization of the relationships between the kinetic and thermodynamic parameters associated with each identifiable step in the exchange process and the physicochemical properties of the participating DNA molecules. The research advances the a molecular level understanding of homologous genetic recombination, a biological process important in DNA repair, replication, regulation, and differentiation.